An Effective Learning Environment Using Computer Technology (ELECT)

A computer laboratory environment is being developed which will encourage active, exploratory student involvement in course content and the learning process. The laboratory enhances existing courses for first- and second-year students in Biology, Mathematics and Computer Sciences, thus addressing recommended curricular changes in these disciplines. Closed Computer Sciences labs for programming design and analysis are being developed Mathematics students have investigatory capabilities for constructive problem solving, visualization of functions and the study of patterns. Still and motion imagery recorded in Biology labs, as well as images from other media (videodiscs, CD-ROM, print), are compressed and stored in a library on the network's server to be used in student exercises for comparison and analysis during closed laboratory sessions.